Probabilistic and geometric combinatorics

The proposer proposes to study several topics in probabilistic and geometric
combinatorics. These topics are related to theoretical computer
science and other academic disciplines. The proposal is divided into two areas.

Part I concerns the study of influences, threshold behaviors and Fourier Analysis.
Influence of variables on Boolean functions and the related notion of
pivotality are of central importance in combinatorics, various other
areas of mathematics, computer science and other areas as
game theory, reliability theory and statistical physics.
What is the correct notion of power or influence in
complicated social situations? or in complex computer networks? How does
noise effect such systems? and what is the correct way of modeling noise?
It turns out that these questions are related to a recent mathematical theory
which involve combinatorics, probability and ``Fourier analysis''.
The proposer will study some basic open problems in
this area. This is closely
related to the study of Fourier analysis of Boolean functions, and to noise.

Part II concerns Helly type theorems and convex polytopes:
One important theme in combinatorial geometry is to try to
extract the combinatorial and topological content of various
geometric theorems. The study of topological Helly type theorems is
one example. Extending results from polytopes
to simplicial and polyhedral spheres is another.
Some of these problems are surprisingly
easy to state and still they were not solved for many decades
and any progress is expected to involve some deep new insights.
These problems are related to the area of ``optimization'' and especially
to ``linear programming''. Optimization - trying to find the best solution
in a complicated situation with various constraints -
is one of the most important applications of mathematics.
The proposer presented some problems in this direction that he intends
to study.